Workshop on Future Research in Biomechanics

Support is provided to the U.S. National Committee on Biomechanics for the planning of the Workshop on Future Research in Biomechanics to be held in Washington, D.C., March, 1985. A significant amount ofpre-meeting activities (engineering and medical) position papers will be solicited by section coordinators to serve as key discussion papers and the planning group will meet to organize the work shop.